Supercomputer Access and File Server for Technological Institute

The availability of supercomputer resources through National Science Foundation Supercomputer Centers has opened new vistas for researchers in three-dimensional continuum structure problems, joined-rock calculations, and calculations relevant to tribology and surface wear. The important computations which are of current interest are all three-dimensional, and without access to supercomputers such calculations are not feasible. At this time, the group of researchers at the Technological Institute of the Northwestern University needs to upgrade their local communications link to the NSF Supercomputer Centers. This grant provides partial support for that purpose.